Synthesis and Assembly of Polyradicals to Two-Dimensional Organic Magnets

This research is concerned with the preparation and study of ultrathin magnetic films of high-spin organic polyradicals having two to nine unpaired electrons. These polyradicals, considered to be superparamagnetic building blocks for a magnet, will be used in the form of a thin film with a thickness of one to hundred monolayers. Langmuir-Blodgett technique will be used to control the structure and the thickness of the films. The study of the materials and their magnetooptical properties will be examined. The results of this research will ultimately lead to the development of magneto-optical storage media that are erasable and rewritable at high speed.